High School Mathematics Courseware: Utilizing Real-World Problem-Solving to Teach Mathematics

9450228 DeRose The preparation that students receive in kindergarten through twelfth grade and college is no longer adequate to sustain our nation's superiority in mathematics, science and technology. A major educational reform is essential. The NCTM Curriculum and Evaluation Standards provide excellent direction for changes in mathematics education, and inspired the development of this real- world problem-solving high school mathematics courseware. With this courseware, teachers can base their instruction on real world problems to be solved using mathematics, and provide their students with the power of computing technology to do so. The courseware consists of 1) a set of 60 simulated real-world problems that require practical solutions; 2) a set of 15 mathematical, measurement, and data collection computing utilities; and 3) a teacher guide. Students are invited to explore problems, implement problem-solving strategies, apply the appropriate mathematical concepts, select and apply the computer utilities they think are appropriate, and determine whether or not the problems have been adequately solved. This courseware is available in CD-ROM based multimedia, as well as video tape and stand-alone computer software. ***